Conference on Undergraduate Science, Engineering and Mathematics, September 30 - October 1, l988

A regional conference for mathematicians and engineers involved in undergraduate education was held on September 30 and October 1, 1988, in Memphis, Tennessee. The conference was jointly hosted by Memphis State University, Mississippi State University, and Tennessee State University. More than 200 representatives of colleges and universities in the Southeastern Region consisting roughly of East Texas, Arkansas, Tennessee, Louisiana, Georgia, Kentucky, Mississippi, Alabama, Southern Illinois, and Missouri. The conference goals were three-fold: (1) to provide a series of presentations on the ways in which undergraduate mathematics programs are being changed to take advantage of computer symbolic manipulations capabilities, (2) to explore the needs and strategies for engineering education especially at the Historically Black Colleges and Universities in the region, (3) to provide an overview of National Science Foundation support for curriculum development in science, engineering, and mathematics at the undergraduate level. From the conference presentations, a paper on the use of computer algebras will be prepared and submitted for publication in the NOTICES of the American Mathematical Society and in FOCUS, the newsletter of the Mathematical Society of America. A second paper on the role of the Historically Black Colleges and Universities in engineering education will be submitted for publication in the newsletter of the American Society of Engineering Education.